CAREER: Canonical metrics, complex Monge-Ampere equations and geometric flows

Abstract

Award: DMS-0847524
Principal Investigator: Jian Song

The proposal focuses on a number of projects on canonical metrics
and stability, geometric flows and complex Monge-Ampere
equations. Such problems are fundamental in complex analysis and
complex geometry, in tight relation to partial differential
equations, algebraic geometry and mathematical physics. The
recent progress and influx of new ideas from Ricci flow,
pluripotential theory and the minimal model program in algebraic
geometry have unravelled a deep, rich and unifying structure.
The PI will investigate the limiting behavior of the Kahler-Ricci
flow and its connection to the classification theory for
algebraic varieties, inspired by Perelman's breakthrough in
Hamilton's program to resolve the geometrization conjecture by
Ricci flow. In particular, the PI aims to study the relation
between the formation of finite time singularities of the
Kahler-Ricci flow and the algebraic surgery in the minimal model
program in algebraic geometry. The PI also intends to continue
his study on canonical metrics of Einstein type on algebraic
varieties and understand the analytic and geometric aspects of
the singularities of such special metrics. The PI also plans to
study the uniform approximation problem of the Monge-Ampere
geodesics in infinite dimensional symmetric space by those in the
finite dimensional Bergman spaces. The precise understanding of
this problem will give new insight into Yau's conjecture on the
relation between Kahler-Einstein metrics and certain stability in
the sense of geometric invariant theory. The outcome of the
proposed research will develop new tools and give profound
insights and understanding of geometry and the structure of the
universe.

Problems in the proposal arise naturally from our attempts to
understand nonlinear differential equations from geometry and
physics. The solutions to these problems will have strong impact
on other fields of sciences such as physics and cosmology in the
deep understanding of our universe. The method of analyzing
singularities of nonlinear equations will have wide applications
in physics, engineering and economics. Furthermore, the PI plans
to disseminate the exciting research at the interface of geometry
and analysis to a broad audience through lectures and
workshops. The proposed project will bring in research and
teaching innovation in mathematics from various disciplines and
have an immediate beneficial effect on undergraduate and graduate
students at Rutgers as well as in the regional mathematical
community. The PI will also organize and participate in the
integrated research/education programs and activities that will
promote the education level of the nation.